Georgia Tech Proposal to Join PSerc

The Power Systems Engineering Research Center (PSerc) is one of the Industry/University Cooperative Research Centers (I/UCRC) supported by the National Science Foundation. The mission of the center is to support research activities in electric power systems. PSerc is headquartered at Cornell University. Presently, several corporations support and direct the activities of PSerc. In addition to Cornell, the University of California at Berkeley, Howard University, University of Illinois at Champaign-Urbana, University of Wisconsin at Madison, Washington State University, Iowa State University and Arizona State University participate in PSerc. The addition of the Georgia Institute of Technology to the participating universities will have many benefits, as outlined in the proposal. The main objective of this proposal is to outline the Georgia Tech research plan within PSerc and to establish a research site for PSerc at Georgia Institute of Technology